Collaborative Research: Alice and Media Computation

Computer Science (31)

This project, Collaborative Research: Alice and Media Computation, is
creating a Java-based introductory CS curriculum combining the proven
approaches of Alice programming and Media Computation.

Intellectual Merit: This project is developing a course which
presents the same concepts found in typical introductory
computing courses using new examples based on Alice and Media
Computation. Students are using Alice to explore the algorithmic reasoning of
programming and learning the syntax of Java using Media Computation.

Broader Impacts: This project is leveraging the strengths of two
innovative approaches that have been successful in attracting and
retaining students in computer science. The combined approach is
using methods, developed and validated by the original
independent projects, to broaden the appeal of computer science to
less-represented groups, and increase the success of at-risk
students. The results of the project are being disseminated through
a series of six summer workshops.